Studies of Radiative Processes with Matter-Wave Quantum Emitters in Tunable Reservoirs

Harnessing the interaction between light and matter is a central topic in quantum optics and emergent quantum technologies. Waveguide-QED (quantum electrodynamics) provides a recent framework in which such interactions, i.e. those between guided photons (particles of light) and elementary quantum emitters (real or artificial atoms), are controlled and engineered through the structure and geometry of the environment in which the two interact. In prior NSF-supported work, the PI has introduced an experimental platform for studies of waveguide-QED effects in the alternative context of ultracold atoms, in which the wells of an optical lattice (i.e. a crystal made of light) act as quantum emitters, while guided atomic matter waves play the role of light. The PI will investigate how the dynamics of such quantum emitters and their interactions change when the emitters move through their environment and when that environment is engineered so that spontaneous emission primarily occurs in a specific direction. By addressing fundamental questions in quantum optics through analogue quantum simulations, the project provides understanding relevant to the further development of quantum information science (QIS) platforms, while also providing pertinent scientific and technical training to graduate and undergraduate students.

The project is devoted to studies of radiative processes in systems of movable atomic matter-wave quantum emitters coupled to structured reservoirs with a tunable band structure. It employs a recently developed, optical-lattice based platform that provides analogues to waveguide QED in which atomic matter waves take the role of photons, enabled by the manipulation of coherently coupled hyperfine-state mixtures of bosonic atoms in state-dependent optical lattices. Making use of the ability to control the motion of the emitters relative to the reservoir, the project will explore the dynamics of emitters approaching the propagation speed of the radiation field, the realization and study of “giant emitters” with spatially separated coupling points, and radiative interactions in reservoirs with topological and chiral properties. The project extends the PI's prior NSF-supported work on non-Markovian spontaneous decay, bound states, polaritons, and sub- and super-radiant dynamics to address other fundamental questions at the forefront of this rapidly developing field.